CAREER: Extending Non-Destructive Infrastructure Assessment Techniques to Micropile Foundations

9875066
CAREER: Extending Non-Destructive Infrastructure Assessment
Techniques to Micropile Foundations

Sarah L. Gassman

ABSTRACT:
This CAREER award investigates an integrated approach to research and
education in non-destructive evaluation (NDE) of civil infrastructure
systems. Much of the civil infrastructure in the United States is
deteriorating due to age, inadequate investment in proper maintenance, and
increased system demand. NDE can provide fast and reliable assessment
techniques that are needed to handle the large volume of deteriorating civil
systems, particularly bridges, that pose serious threats to safety if they
fail. The focus of this research is to develop a NDE technique based on
stress wave principles to efficiently and accurately assess the integrity of
micropile foundations that are used to support existing foundations of aging
bridges and buildings during rehabilitation. This work consists of 1)
laboratory investigations on micropile foundations using a combination of
longitudinal and flexural wave methods with surface and embedded sensors, 2)
analytical studies related to signal processing and numerical simulation,
and 3) field investigations of in situ micropiles. Although NDE is well
established and confirmed by extensive site experience for drilled shafts
and driven concrete piles, the technique is uncertain for slender piles with
high length-to-diameter ratios and piles with multiple changes in
cross-sectional dimensions. Thus, this work will study the fundamental
relationship between slender micropile foundations and the surrounding soil,
the effect of multiple changes in cross-sectional area on wave propagation
and the received signals, and the dispersive effects of the concrete used
for micropile construction. An education plan is integrated with the
proposed research to incorporate infrastructure assessment, rehabilitation,
and monitoring technologies into the civil engineering curriculum at the
University of South Carolina. Education is critically needed in the areas
of infrastructure failure, inspection, and rehabilitation to give both
students and the engineering workforce the skills to revitalize and preserve
our nation's civil infrastructure. Furthermore, the plan proposes to
integrate NDE research methodology into course work, provide increased
research opportunities for undergraduates, and increase participation of
traditionally under-represented groups